MRI-Acquisition: Sputtering System for Developing Novel Germanium Detectors and Materials

This award will provide a new sputtering system for developing novel germanium (Ge) detectors and materials research in the Departments of Physics at the University of South Dakota (USD) and at South Dakota State University (SDSU). This instrument will significantly improve the research facility and capability in the state of South Dakota. The device will be used by a number of investigators to develop and test novel germanium detector designs, some with promising applications to dark matter and neutrino detection, others for medical imaging. The equipment and the dedicated detector fabrication laboratory promise to realize an unusually broad spectrum of Broader Impact. This includes advances in medical research, but also more generically, in fields like environmental monitoring or homeland security. In addition, the group has a track record of involving students from underrepresented groups in the research. The planned instrument will enable multidisciplinary research and more than 50 students will be trained.

A sputtering system with a configuration to coat up to 4 inches in diameter and 3 inches in thickness for substrates per batch from both sides by utilizing an in-situ substrate pallet flipping mechanism is planned in this project. Sputtering is a deposition technology involving a gaseous plasma which is generated and confined to a space containing a target (substrate) to be deposited. The surface of the target is eroded by high-energy ions within the plasma, and the liberated atoms travel through the vacuum environment and are deposited into a substrate to form a thin film. The sputtering technology has been used in developing novel Ge detectors by creating amorphous Ge (a-Ge) or a-Si thin films onto high-purity Ge crystals to make electrical contacts, which provide bipolar blocking for electrons and holes.